Phylogenetic Relationships of Pezizales and Allied Ascomycetes

Dr. James Kimbrough of the University of Florida will continue his electron-microscopic studies of fungi of the orders Pezizales and Tuberales in order to improve recognition of the genera and families constituting these orders and to begin determining the evolutionary lineages among these saprobic and mycorrhizal organisms. Tuberales includes the well-known edible truffles, species of which have evolved a subterranean existence through a mycorrhizal attachment to the roots of host trees. Dr. Kimbrough's fine-scale analysis of developmental and microchemical features of the spore-discharge apparatus of these fungi is providing data showing the phylogenetic linkage of these subterranean organisms to better-known aboveground cup-fungi. His work will test theories about the evolution of hypogeous (belowground) truffle taxa from the more numerous epigeous (aboveground) taxa of Pezizales, particularly the likelihood that several parallel occurrences of this peculiar subterranean mode of life have evolved among ascomycete fungi.